Stochastic Control Models in Finance

DMS-9802464
P.I. - Steven E. Shreve
Stochastic Control Models in Finance

Abstract:

Research is proposed in five areas. These are unified by a stochastic
calculus methodology.
(1) Callable convertible bonds. This is a two-person game, played by a
bond-holder, who can convert the bond for stock, and the issuing firm,
which can call the bond and thereby force conversion or surrender.
(2) Contingent claim replication under portfolio constraints. A
financial institution takes a position in assets which produce a risky
cash flow, and wishes to offset this risk by taking opposing positions.
However, there may be constraints on its actions, or the offsetting
positions mandated by the model employed may be too unstable to actually
implement. The effect of such constraints can be studied via a dual
problem.
(3) Passport options. A passport option entitles its owner to actively
manage a fund, receive any profit which accrues, and be forgiven any
loss which occurs. The institution selling this option must observe the
trading activity of the option owner and solve a stochastic control
problem to determine how to react to the owner's trading so as to be
able to cover losses the owner incurs.
(4) Credit derivatives. Financial institutions sell a variety of
contracts designed to pay off in the event of default of corporate
bonds. Default cannot be perfectly predicted, and this element of
'surprise' requires that models reach beyond the standard
Brownian-motion framework.
(5) Energy derivatives. Deregulation of natural gas and electricity has
given impetus to derivative securities in energy markets, and models for
such derivatives are under development.

The United States has a tenuous lead in the financial services industry
in large part because of the whole-scale integration of mathematical
modelling and computer technology into this industry. The maintenance
of this lead requires continued fundamental research and redoubled
technological educational efforts. This proposal is part of a long-term
project to develop an educational and research enterprise which is
doubly connected to the finance industry. The first connection is
through the provision of human resources. The proposed work would
support a successful interdisciplinary Ph.D. program in Mathematical
Finance. Carnegie Mellon also has a professional Master's degree
program in Computational Finance, and an undergraduate option in finance
is under development. These programs have a substantial synergy. The
second connection with industry is through research projects which use
advanced mathematics on fundamental problems drawn from the industrial
context. Among these are energy derivatives, which have become
important with the deregulation of natural gas an electricity, and
credit derivatives, which are a form of insurance against default of
corporate bonds